Gateway Engineering Education Coalition

The Gateway Coalition proposes to open new "gateways" for learning by altering engineering education from a focus on course content to the development of human resources and the broader experience in which individual curriculum parts are connected and integrated. The scope of the program includes four major parts: curriculum structure, human potential development, instructional technology and methodology, and evaluation measures. Gateway efforts will broaden, expand and enrich emerging innovations with new issues and a pervasive framework. The intellectual threads will weave together: 1) the introduction of engineering and its functional core "up-front," 2) a unified and connected supportive knowledge "as needed," 3) the integrative aspects of the engineering process, and 4) instructional technologies. Representing a diversity of institutional cultures imbedded in regions of significant underrepresented minorities population, the Coalition will impact engineering education through structure, content, and interinstitutional linkages. The program will emphasize engaging students in engineering from the day they matriculate; making the study of engineering more attractive, exciting and fulfilling; developing students as emerging professional leaders with the knowledge base and capability for lifelong learning; increasing the the numbers of women, underrepresented minorities and the disabled participating in engineering; and drawing engineering faculty to a dedicated investment in the teaching of undergraduate students.